Coinfection and the Consequences for RNA Virus Evolution

Most natural infections contain multiple viruses, and this has
important consequences for virus evolution. On the one hand, viruses
can swap genes during co-infection, creating variability that allows
rapid virus evolution. On the other hand, increased competition between
viruses can occur during co-infection, slowing the rate of virus
evolution. This suggests a compromise where viruses evolve to restrict
the numbers that enter a cell (to decrease competition) without reducing
the number to one (to achieve gene exchange). Given the widespread
occurrence of virus co-infection, it is surprising that the costs and
benefits of this phenomenon are virtually unexplored. The focus of this
project is to address the question using viruses that infect bacteria.
Laboratory experiments will examine the evolution of virus traits that
control co-infection numbers, and molecular analyses will determine the
genetic changes responsible.
The results of this project can be applied to several systems
because viruses are important disease agents in animals, plants, and
bacteria. Because the life cycle of the project virus is similar to
that of many human viruses (such as influenza and HIV), the project data
should contribute greatly to a better understanding of the generalized
role of virus co-infection in human illnesses.